Combining Experiments with Lectures in Calculus and Physics

Students are utilizing the concepts of Calculus to solve applied problems in both Calculus and Physics. The instructional approaches are modeled after the methods developed by Priscilla Laws, Ron Thornton, Alan Van Heuvelan, David Maloney, and others, to teach Physics. The approaches also involve stressing the graphical, numerical, and analytical aspects of Calculus in keeping with the ideas forwarded by the Harvard Based Calculus Consortium. An important aspect of this method of teaching is a set of short, simple conceptual experiments whose outcomes are recorded and graphed in real-time by a computer. Concepts are first developed qualitatively using experiments and their graphs, then quantitatively through mathematical representation of physical phenomena, and finally with overview case study problems.